Travel to 2nd European and African Conference in Wind Engineering (Genova, Italy - June 22-26, 1997)

9634774 Reed Funds for the International travel of a team of United States wind engineering experts are provided for them to attend the 2nd European and African Regional Conference on Wind Engineering. The participants include both junior and senior members of this research community, whose presence will enhance the exchange of valuable information, the possibility of building international partnerships and collaborative efforts for joint research projects. Also, it presents an unique opportunity to determine the state-of knowledge of all the participant countries and the possibility of setting technology transfer mechanisms. ***